ITR: Collaborative Research: Solving PDEs Using Low Separation-Rank Representations and Optimal Quadratures for Exponentials

This project develops time-domain solvers for wave propagation problems
in two and three dimensions, with fundamentally improved properties,
namely, significantly reduced sampling requirements and, at the same
time, significantly higher accuracy. Such solvers would allow modeling
of linear and, eventually, nonlinear wave propagation in domains that
are thousands of characteristic wavelengths in size, with interfaces and
variable coefficients. This approach would also provide improved bases
for solving nonlinear advection-diffusion problems. The solvers are
built upon two new techniques, namely, optimal quadratures to represent
bandlimited functions, and a numerical generalization of separation of
variables to accelerate applying higher-dimensional operators. Each
technique contains the potential to significantly advance computational
science across a wide range of applications. Together they provide a
new paradigm that efficiently organizes the information contained in
operators governing physical phenomena. This project develops these
techniques further, and develops multiresolution representations for
operators and functions, based on the optimal quadratures.

Any computational modeling of natural phenomena requires discretization
of the underlying mathematical equations. This project addresses
questions of optimality and efficiency of such discretizations, and of
organization of information for two important modeling areas, wave
propagation and geophysical fluid dynamics. This research aims to
generate a much wider use of efficient techniques for representing
information in scientific modeling, and to increase the speed and
accuracy of simulations by up to two orders of magnitude, with
foreseeable benefits to such areas as seismology, remote sensing,
acoustics, optics, geophysical fluid dynamics, and quantum chemistry. It
would reduce the computational cost of obtaining high accuracy, which is
necessary to describe phenomena that are highly sensitive to changes in
physical parameters, and that often cause technological bottlenecks.
This Collaborative Research is led by the Department of Applied
Mathematics at the University of Colorado at Boulder, and includes the
Department of Meteorology at the University of Maryland at College
Park. It will fund one research associate, two visiting scientists from
UMD and Ohio University, and one graduate student in a diverse research
group that includes a research associate, two postdoctoral researchers,
a graduate student, and four undergraduate students.